Gathering of a community: Geoscience Programs at Community Colleges - Models for Success and Innovation; Fall 2010; Denver, Colorado

This award is supporting the attendance of 15 community college geoscience faculty members at the 2010 Annual Meeting of the Geological Society of America in Denver, Colorado (October 31 - November 3, 2010). During the GSA meeting, these faculty members will attend and give presentations in two special sessions on "Geoscience Programs at Community Colleges: Models for Success and Innovation". They will also participate in a special Sunday evening forum to discuss with NSF program officers the process of obtaining NSF funding and some of the specific opportunities at NSF that are of particular relevance to geoscience faculty in community colleges.